Press Project 1.7 Coordination

This project establishes the coordination base for the U.S. precast concrete research projects. It will integrate the results of the research into readily usable forms and: * organize major coordination meetings of all principle investigators at six month intervals, * coordinate activities between U.S. and Japan precast concrete research activities through annual joint meetings, * provide coordination with other precast concrete programs on-going elsewhere, * facilitate transfer of technology to industry and the design profession. This project will provide an effective mechanism for integration of the four research projects into a coordinated research effort.